Travel Subsidy for 1988 IEEE International Symposium & Workshop on Information Theory

This award provides funds to support, in part, the travel expenses for U.S. participants in the 1988 IEEE International Symposium on Information Theory, held in Kobe Japan, June 19-24, 1988 and in the 1988 Workshop on Information Theory co-sponsored by the Chinese Institute of Electronics Information Theory Society, held in Beijing, China, July 3-6, 1988.